Dragon Skies: Astronomy of Imperial China

Chabot Space and Science Center is developing an exhibit of Chinese astronomical artifacts and organizing a United States tour of the exhibit. "Dragon Skies: Astronomy of Imperial China" consists of 31 exhibit pieces, including seven large astronomical instruments, chronographs, stone carvings and star maps. Many of these artifacts have never before left China. In order to increase the awareness and understanding of students, teachers and the public about Imperial China's rich astronomical achievements, Chabot will develop a variety of interpretive materials and programs that address interests and learning styles, present scientifically and historically accurate information, and serve both informal and formal educational audiences. These materials will include a planetarium show, an audio tour, special signage, multimedia animations/interactive kiosks, a web site, student activities, community events, a science drama program, activities for the general public and a variety of printed materials. Many components will be developed in English, Mandarin and Cantonese.